Acquisition of Apollo Computer Workstations

The Institute of Geophysics and Planetary Physics at the Scripps Institution of Oceanography will acquire new computer work stations and associated peripheral equipment for shared use by a number of NSF-sponsored researchers. The upgrade to the existing Apollo-based computer network will enhance the research capabilities for a number of investigators. NSF- sponsored research that will benefit from this acquisition and enhanced data processing capabilities involves marine multi-channel seismic investigations, interpretation of mid- ocean ridge processes, whole earth tomography, differential travel time analysis, space geodesy, and other research areas. The equipment chosen for acquisition was selected on the basis of compatibility with their existing system.